Fundamental Symmetries: Neutrons and Neutrinos

This award supports research to understand the fundamental laws of nature that shaped the evolution of the universe. One of the great unanswered questions in science is why the universe contains matter but almost no antimatter, allowing stars, planets, and life to exist. Precision measurements of neutrons and radioactive decay provide powerful ways to search for new physical phenomena that may help answer this question and deepen understanding of the earliest moments of the universe. Researchers at the University of Illinois Urbana-Champaign will develop advanced instruments and carry out experiments that probe the fundamental properties of matter and neutrinos, among the most abundant particles in the universe. The project advances precision measurement science, including quantum sensing technologies and advanced instrumentation, while also leveraging modern fabrication and manufacturing techniques for neutron experiments. The research will provide interdisciplinary training for undergraduate students, graduate students, and postdoctoral researchers in experimental physics, instrumentation, data analysis, and scientific communication. Students will participate in cutting-edge research and collaborate with scientists at national laboratories and international research facilities.

The investigators in the nuclear physics group at the University of Illinois Urbana-Champaign will carry out an integrated program in experimental neutron physics and tests of fundamental symmetries. The research activities include: (1) deploying the novel neutron “elevator,” developed at Illinois and implemented in the UCNtau+ experiment at Los Alamos National Laboratory, to improve neutron lifetime measurements; (2) commissioning at Illinois the Alpha-Gamma Device, a key calibration instrument for the BL3 neutron beam lifetime experiment, and deploying it at the National Institute of Standards and Technology to help resolve the longstanding discrepancy between beam and bottle measurements of the neutron lifetime; (3) constructing advanced magnetic-field sensors for the neutron electric dipole moment experiment at Los Alamos National Laboratory to search for a tiny separation of electric charge within the neutron that would signal new physics beyond the Standard Model, while applying quantum sensing and precision magnetometry techniques to the Project 8 neutrino mass experiment; and (4) developing the atomic tritium source required for future Project 8 measurements aimed at determining the absolute mass of neutrinos. The program also develops advanced neutron transport, spin manipulation, and detection technologies that rely on modern manufacturing approaches for precision scientific instrumentation. Together, these activities will strengthen the experimental foundation for understanding the weak interaction and exploring physics beyond the Standard Model.